Mangeto-Optical Study of GaAs/AlAs Quantum Well Band Structure

Research on GaAs/A1As quantum well structures will be conducted in collaboration with Dr. Mitra Dutta and her co-workers at U.S. Army Electronic Technology and Devices Laboratory (ETDL), Fort Monmouth. The program will emphasize study of GaAs/A1GaAs quantum wells perturbed by the addition of thin A1As barrier at the center of each well using reflectance and photoluminescence spectroscopies. The goal is to explore a new method of tuning intersubband transition energies for FIR detector applications.